Two Workshops for Professors Teaching Undergraduate Biology or Computer Science With an Interest in Incorporating "Genomics" - The Analysis of DNA Sequences - Into Their Curricula

Computing - Other (35)
These workshops provide models for teaching undergraduate genomics - the emerging field of computational analysis of DNA sequences. The key feature is the creation of collaborations between biologist and computer scientists who link their courses in order to include coordinated material. The use of workshops over a two-year time span allows for development, feedback and dissemination of models and educational materials.